Promotion of Sustainable Development in Engineering

WPC: 2 B V S Z #| x 2 x x x "X x @ X @ Standard Printer s II STANDARD.PRS x @ `X @Courier 10 Pitch 2 V F Z R 2 x x x "X x @ X @ Standard Printer s II STANDARD.PRS x @ `X @ #| x 2 8 9317803 Tollerton This proposal request that NSF support the efforts of the American Association of Engineering Societies (AAES) to promote and advance sustainable development in the U.S. engineering community through the AAES Task Force on Sustainable Development and, internatinally, through the World Federation of Engineering Organizations (WFEO), the Pan American Federation of Engineering Societies (UPADI), and the World Engineering Partnership for Sustainable Development (WEPSD). The proposer, in collaboration with WEPSD, will compile papers on sustainable development, as well as policy papers elaborating on each of the sustainable development action principles for the engineering profession, developed by the Task Group and approved by the AAES Board of Governors. Other proposed activities include; a possible conference on sustainable development, preparation of an AAES/WEPSD video on sustainable development, and a speakers' bureau.